CAREER: Application and Theory of Geometric Shape Handling

The objective of this research is to help increase speed, quality, and productivity of shape handling in practice. Geometric shapes are at the core of a wide range of cutting-edge technological sectors including computer vision, computer aided design (CAD), robotics, bioinformatics, computational biology, medical imaging, geographical information systems (GIS), and drug design, in which a multitude of tasks for manipulating and handling geometric shapes have to be performed efficiently and reliably.

This research is based on two research tracks: (i) shape handling applications and (ii) shape handling theory. The investigator will continue to foster interdisciplinary communication, contribute more theoretical soundness to applied problems, and pursue a stronger theoretical foundation which can be the basis for a wider range of applications. Specifically, this research involves several applied projects including, but not limited to, computational proteomics, computational neuroscience, and spatiotemporal traffic databases. Semi-automatic algorithms will be combined with theoretical expertise in order to pave the road for high-throughput processing in areas with very noisy data. Theoretical projects include matching and distance measure problems for curves and surfaces, multi-curve matching, initiation of a general study of geodesic distance measures in which distances are measured using shortest paths on a surface, and shape simplification. Lower bounds will be investigated in order to gain better insight into the structure of the problems, and application-friendly algorithms such as output-sensitive algorithms and approximation algorithms will be devised in order to better cope with outliers and noisy inputs.